3-dimensional manifolds and related topic

Abstract

Award: DMS-0305846
Principal Investigator: Cameron Gordon

(1) The goal of the project is to investigate several problems in
and around 3-dimensional topology. A major focus will be the
Cabling Conjecture, which asserts that Dehn surgery on a
hyperbolic knot in the 3-sphere always yields a prime
3-manifold. This is part of the program to completely describe
all non-hyperbolic Dehn surgeries on hyperbolic knots. Recently,
John Luecke and the principal investigator showed that the
hyperbolic knots with non-integral toroidal Dehn surgeries are
precisely those described by Eudave-Munoz, and some of the
techniques developed there may be applicable to the Cabling
Conjecture. Another part of the general program that will be
addressed is the conjecture that any Seifert fiber space surgery
on a hyperbolic knot must be integral. The project will also
consider various geometric group theoretic topics that are
related to the theory of 3-manifolds, such as surface subgroups
of Coxeter and Artin groups, and Gromov's question as to whether
or not a 1-ended word hyperbolic group always has a surface
subgroup. Another question concerning surfaces and 3-manifolds
that will be investigated is the Simple Loop Conjecture, which
asserts that if a map from a closed orientable surface to a
closed orientable 3-manifold is not injective on fundamental
group, then there is an embedded essential loop in the surface
whose image is null-homotopic in the 3-manifold.

(2) The project is part of the general goal to understand the
structure of 3-dimensional manifolds. These are objects that are
locally like ordinary 3-dimensional space, but whose global
structure may be quite complicated. Since we live in a
3-manifold, one might say that 3-dimensional topology aims to
describe what the mathematical possibilities are for our spatial
universe. One important aspect of 3-dimensional topology is the
theory of knots - a knot being a closed loop embedded somehow in
space. A wide variety of mathematical methods can be applied to
the study of knots, leading to new information about
3-manifolds. Recently, deep connections between 3-dimensional
topology and quantum physics were discovered in this way. Knot
theory is related to the general theory of 3-manifolds through a
construction known as Dehn surgery, in which a solid tube around
the knot is removed and sewn back in differently. We note that a
theorem about Dehn surgery, the Cyclic Surgery Theorem, has been
used to determine the topological nature of the action of certain
enzymes on strands of DNA. Many aspects of Dehn surgery are now
quite well understood. One of the main remaining questions, which
is a major focus of the project, is to show that (except in an
obvious degenerate situation) the 3-manifold resulting from a
Dehn surgery on a knot never decomposes as a "sum" of two simpler
manifolds. Another important tool in 3-dimensional topology is
the study of (2-dimensional) surfaces in 3-manifolds, and the
project will also address various questions in this
area. Finally, the project will enable the principal investigator
to continue his involvement in the education and training of
graduate students in topology at the University of Texas at
Austin.